The Mathematics Center Computer Classroom Development Project at Queensborough Community College

Sylvia Svitak DUE 9551562 CUNY Queensboro Cmty Col FY1995 $ 35,000 New York, NY 11364 ILI - Instrumentation Project: Mathematics Title: The Mathematics Center Computer Classroom Development Project at Queensborough Community College This project will facilitate and extend the implementation of mathematics curriculum reform. The immediate goals are to provide the technological support required by our calculus curriculum reforms and to make available computer assisted instruction (CAI) as one of the alternative modes of instruction for our remedial programs. Pilot projects in calculus using such computer algebra systems as Derive and Converge have been and are being conducted by the faculty. The expected outcome of this research will be the addition of a computer laboratory component to all of the pre-calculus and calculus courses. Students in the pilot projects have been actively exploring mathematical concepts analytically, graphically and numerically through computer assignments and projects developed by our instructors. To a greater degree than ever before, they have been able to delve sooner and more deeply into the how and why of mathematical theory. Our aim is to extend the benefits of such instruction to all our students. The goals of our reforms will be accomplished through the establishment of a computer classroom as part of the ongoing development of our Mathematics Learning Center. The classroom will have sufficient hardware and software to extend the innovative modes of instruction. from our pilot projects to all our calculus courses and eventually to all our other course sequences.